Performance Evaluation of Parallel Logic Programming Paradigms (Computer and Information Science)

A shared memory multiprocessor testbed will be built for measuring parallel logic programming language architectures. The purpose of developing the testbed is to compare several parallel implementations of logic programming languages to determine which paradigm offers greater cost-effective performance. An equally important goal is the determination of the memory characteristics of, and memory designs suitable for those languages. The testbed, enabling empirical measurement of benchmark performance, will be composed of architecture emulators and memory simulators running on a host multiprocessor. Processor performance is estimated as required shared memory bandwidth because high speed processors are ultimately limited by memory bandwidth and architectures that require less bandwidth have greater potential for high performance. Memory performance statistics to be collected include local cache miss ratio, traffic ratio, broadcast traffic (necessary to retain consistency between caches). This methodology is most suited for ongoing processor design efforts, like the PIM project at ICOT, because experimental memory designs can be quickly described, tested and results compared with other models. This project is a collaborative effort with the Japanese Institute for New Generation Computer Technology (ICOT) and funded under the NSF/ICOT Visitors Program.